Compiler Technology for Scalable Servers

This research investigates compiler techniques for improving the
performance and scalability of Internet server programs. Servers have
a different set of characteristics from the computations that compiler
writers have focused on in the past. Instead of executing a
compute-bound computation with a modest number of long-lived threads,
servers typically use many short-lived threads to manage I/O bound
connections from multiple clients. These new characteristics place a
premium on previously less relevant aspects of the system such as the
thread creation overhead and thread stack overhead. They also provide
opportunities that the compiler can exploit to improve the memory
management. The research will attack thread overhead by automatically
transforming multithreaded code to event-driven form. Code in
event-driven form contains an event loop that repeatedly blocks
waiting for the next event from any of the current connections. It
then invokes a handler that executes the appropriate action, then
returns to the event loop. This transformation will eliminate thread
creation and management overhead. The compiler will attack memory
management overhead by analyzing the program to identify objects whose
lifetimes are tied to individual threads, then using specialized
memory management algorithms for these objects.